Understanding the Long-term Public Institution for Personal Learning: The Impact of Museums

This conference is to examine learning techniques in a museum setting, in cooperation with the American Association of Museum. The conference will initiate the process of defining both what and how to measure learning in museums.